Diffusion Multiscale Analysis

In this proposal, the investigator and his collaborators address
several questions arising from the mathematical analysis of multiscale
geometries of sets, and multiscale decomposition of function spaces,
that arise from the action of a diffusion semigroup on a manifold, a
graph and other rather general metric spaces. While these multiscale
geometries are partly implicit (and classical) in differential geometry,
in partial differential equations, as well as in many branches in graph
theory (with applications to problems in computer science), only
recently a very general, yet efficient, coherent and unifying
construction has been introduced by the investigator and his
collaborators. Multiscale function space decompositions that mirror
these multiscale diffusion geometries are also constructed, through the
introduction of special wavelet functions. This is a far-reaching, and
long sought, generalization of wavelet analysis, both mathematically and
computationally. The investigator and his collaborators have shown that
algorithms for efficiently computing these multiscale decompositions
exist, which generalize the fast wavelet transform and Fast Multipole
Methods, yielding fast multiscale algorithms guaranteeing
high-precision. The investigator will study the construction of
biorthogonal diffusion multiscale decompositions, multiscale function
approximation on rough sets, multiscale diffusion analysis of data sets
and its relationships with geometric measure theory, multiscale Markov
chains, numerical analysis of PDEs, learning theory, hyperspectral
imaging and document corpora analysis.
The investigator expects this novel multiscale construction to have
impact in all these disciplines, in a way similar to the impact wavelet
analysis had on low-dimensional signal processing and numerical analysis.

The present proposal stresses the inter-disciplinary nature of several
aspects of multiscale analysis, and the vast applicability of the ideas,
tools, constructions, to pure and applied mathematics, and to other
disciplines such as computer science, physics, engineering, astronomy
and statistics, among others. The introduction of these novel multiscale
techniques reveals new and interesting multiscale geometric structures
of graphs and sets, together with effective computational tools to
discover them. The range of applications is very wide, and includes the
analysis and organization of large and complex networks (e.g. computer
networks, biological regulatory networks etc...), document corpora for
information extraction, hyperspectral imagery (for applications to
medicine, target recognition etc...), and large datasets in general. It
has also applications to the development of new algorithms for learning
and artificial intelligence, for the automation of complex tasks. The
investigator aims at strenghtening his existing collaborations, and
establishing new ones, with other institutions, both in the United
States and abroad, across several disciplines, in particular computer
science, astronomy, biology, and medicine. He will continue his existing
collaborations with companies developing next-generation
instrumentation, for applications to hyperspectral imaging. He will
continue to actively participate in multi- and inter-disciplinary
conferences, workshops and research activities, and effectively
communicating and disseminating ideas and techniques to
multi-disciplinary audiences, making his work, including papers and
computer code for the corresponding algorithms, easily accessible
electronically.